Selective Removal and Surface Instabilities in Dealloying Processes

This research program examines mechanisms of dealloying, or selective removal (SR), of a component from metal alloys. Several experimental techniques, atom probe field ion microscopy (AP-FIM), scanning tunneling microscopy/atomic force microscopy (STM/AFM), and electrochemical impedance spectroscopy, are employed that are state-of-the-art to characterize the SR process at the nanometer level in real time. A model of SR mechanism has been developed, and the research involves testing and improving the model. The relationships between alloy composition, environment, reaction rate, temperature, time, and pore formation and size are examined. %%% The subject is of wide ranging technological importance from catalysis to stress corrosion cracking to high temperature oxidation.